Young Scholars Program at Concordia College, Moorhead

Concordia College seeks to initiate a four-week, residential, summer program with follow-up sessions during the academic year in interdisciplinary science for 24 students entering the eleventh and twelfth grades. The project provides an opportunity for students to participate in research activities in biology, chemistry, and physics under the guidance of research scientists at Concordia College.